MGR Honorable Mention: Ronald M. Ruiz

This special award will give Ph.D. student Ronald M. Ruiz additional flexibility in pursuing his graduate studies and research initiation in behavioral neuroscience. This award will strengthen minority participation in research in this area.